CAREER: Understanding Soil Moisture Variability

The water held in soil is a critical resource for U.S. agriculture and the amount of moisture in the soil is a key factor in the evolution of droughts, floods and wildfires. But despite its central importance for water resources and its role in natural hazards the basic science of soil moisture at regional to continental scales is not well developed. This award advances the basic science of soil moisture by addressing two questions: first, what are the key controls on the spatial variability of soil moisture under present-day conditions? Second, how will soil moisture change as ambient conditions change? The question is motivated by the drying trends found in many of the world's semi-arid regions including the U.S. Southwest, which raise concerns about future water resources as well as increases in the severity of heat waves and the risk of wildfire. The educational component of the CAREER project uses art to teach students about the water cycle and the balance of sources, sinks and storage that accounts for the presence of water on land.

The research questions are addressed through the construction of a hierarchy of soil moisture models starting from the simplest configuration and incrementally adding complexity to determine the most parsimonious version that can account for the behaviors of interest. In the simplest model version the moisture budget of a thin layer of soil is boiled down to a formula involving only precipitation and sunlight received at the surface. Despite its simplicity and neglect of important factors such as vegetation physiology the model successfully reproduces the annual cycles of soil moisture seen in a variety of soil moisture regimes over the globe. Complexity is added to the model through more realistic representations of factors including the nonlinear effects of soil saturation fraction on evaporation, runoff, and drainage. The models are compared to observations and output from earth system models and a high-resolution atmospheric model.